Innovative Multicultural Curricula for the Young EC and U.S.Engineers and Scientists of the Year 2000

This three-year award to the Department of Education will support the participation of a US consortium in an innovative multicultural curriculum for young scientists and engineers from the US and the European Union (EU). The US consortium is headed by the University of Texas at Austin, and includes the University of Virginia at Charlottesville and the Oklahoma State University at Stillwater. Support of this proposal will allow 18 US graduate and undergraduate students to enroll in the seven institutions in the counterpart European consortium supported by the European Union and receive academic reciprocity and a double diploma, and to participate in an industry internship. The seven institutions in the European consortium are headed by the Ecole Central of Lille in France, and include the Free University of Brussels and the Catholic University of Louvain in Belgium, the University of Zaragoza in Spain, the Technical University of Munich in Germany, Brunel University in the United Kingdom, and the Polytechnic Institute of Milan in Italy.